EPSCoR Graduate Fellowship Program (EGFP): Workforce training to understand Earth's reservoirs and the energy transition

The National Science Foundation (NSF) EPSCoR Graduate Fellowship Program (EGFP) supports EGFP designated institutions and programs in EPSCoR jurisdictions by providing funding for graduate fellowships for new or continuing EGFP-eligible applicants. EGFP awards provide a total of three years of stipend and associated cost-of-education (COE) allowance for each NSF EPSCoR Graduate Fellow.

This award to New Mexico Institute of Mining and Technology (NMT) will support six EPSCoR Graduate Fellows over the three-year period, which will build capacity in research and graduate education at NMT. Fellows’ research will be centered on different aspects of the energy transition and associated technologies, including renewable energy, critical minerals, and carbon sequestration, and will contribute to increasing workforce capacity in these sectors. This award supports Fellows conducting research associated with specific topics or areas that align with the unique goals and programs supported by the Directorate for Geosciences (GEO) at NSF.